Size Distribution of Aerosols in Polar Air Masses

It is the purpose of this investigation to study the physics and chemistry of very small atmospheric particles called Aitken particles. The study has three parts: 1) to develop a climatology of aerosols, that is to determine how the aerosol size distribution and number concentration varies with the origin of the air mass being studied; 2) to attempt to confirm the essential features of a model developed by the proposer called "The Cloud Erosion Model". This model predicts very definite changes in the size distribution and number concentration of aerosol as a function of the history of the airmass; 3) to study the possible production of aerosols by photochemistry in the clean arctic air.